Models of Continental Extension with Emphasis on Lower Crustal Flow

9314672 Buck Continental margins where the crust is hot or was hot during the extension do not always match simple lithospheric extension models. The PI will use a two-dimensional model of thin brittle-plastic crust overriding a thicker viscous lower crust to learn more about controlling factors of long-term continental margin development in South China Sea, Aegean Sea, the Woodlark basin and the Exmouth Plateau.